Acquisition of the Claremont-Riverside Infrared Camera (CLRIRCAM) for the Pomona College 1.0-m Telescope

Abstract RUDOLPH, A. L. AST-9618861 This grant supports the acquisition of a near-infrared (1 micrometer to 2.5 micrometer spectral range) camera for the Pomona College one-meter telescope at the Table Mountain Observatory.